Planning Meeting for the Measurement, Control and Environmental Consortium

ABSTRACT EEC-9528718 Beattie Environmental concerns have made it necessary to develop technologies that will permit wide-spread environmental biomonitoring-microbial population dynamics during biodegredation of industrial or municipal wastes, biological effects of exposure to toxic chemicals in the environment, and the presence of beneficial and pathogenic microorganisms in soil, water, air, food, and agricultural products. This award provides funding for a planning meeting that will study the potential for obtaining enough industrial support for the University of Texas Medical Branch at Galveston to become an additional university research site of the University of Tennessee's Industry/University Cooperative Research Center for Measurement and Control. The expanded research agenda will address the biological aspects of analytical instruments, process control, ecosystem surveillance, environmental monitoring and micro-system technologies.